Use of the Lateral Line for Foraging in Antarctic Notothenioid Fishes

The most abundant and most speciose fish at McMurdo Sound, Antarctica belong to the suborder Notothenioidei. These fish live under conditions where it is often very dark, particularly under thick ice or during the winter. This study will focus on the functional ramifications of the anatomically diverse lateral line systems of these fish. The lateral line is a mechanosensory structure which is hypothesized to play a role in feeding. The lateral line system of the notothenioidids includes features that converge on those of fishes from other dark habitats such as the deep ocean and caves. This project will determine which notothenioids can use the lateral line to feed in the dark and will focus on two hypotheses: (1) the lateral line is tuned to detect important prey and (2) deeper living fish have more sensitive lateral line systems. This approach combines studies of behavioral responses to live prey and artificial stimuli, physiological responses of lateral line nerve fibers to artificial stimuli. and anatomical studies of the diverse lateral line system. The role of the lateral line system in fish is not clearly understood and this research project will make an important contribution to the field.